Travel Support for Internal Working Conference on Active Networking - IWAN 2001

The 2001 International Working Conference on Active Networking (IWAN) will be held in
Philadelphia, Pennsylvania, from September 30, October 2nd, 2001. This conference is the pre-mier
international workshop in the emerging field of active and programmable networking. This
proposal requests funding to assist fourteen United States-based graduate students in attending this
meeting. Participation in workshops such as IWAN is an extremely important part of the gradu-ate
school experience, providing the opportunity to interact with more senior researchers and be
exposed to leading edge work in the field. In addition, IWAN offers the opportunity to interact
with international researchers in this area, as both the presenters and the attendees have had strong
European and Asian presences. The support requested in this proposal will enable the participation
of students who would otherwise be unable to attend IWAN 2001.